Planning Meeting on Asia-Pacific Materials Research Workshop

9809947 Chang The purpose of this planning meeting is to plan an international workshop in materials research which will take place at the end of 1998. Participants in the planning meeting will include researchers and government agency representatives from the region including China, Taiwan, Singapore, Australia, Korea, Japan and the United States. The purpose of the workshop itself is to identify specific areas for fruitful U.S.-Asia cooperation in the interdisciplinary area of materials research and to recommend how the supporting U.S. and Asian government agencies can help in the development of increased cooperation in the international research community through the formation of an Asia-Pacific Materials Research Network.